Deformations of Integrable Systems

DMS-9877151
ABSTRACT

Professor Gieseker will investigate deformations of infinite dimensional
integrable systems such as the KdV hierarchy. The KdV hierarchy is a
sequence of mutually commuting differential operators in one variable. The
object of this grant is to produce deformations of this and similar
hierarchies which preserve complete integrability. Professor Gieseker has
produced such a deformation of the KdV hierarchy and will seek to produce
many more deformations of KdV and also to find deformations of other
infinite dimensional completely integrable systems.

Certain important equations of nonlinear science are completely integrable,
which roughly means that there are a lot of conserved quantities of these
equations. These equations are applicable in a wide variety of practical
situations, for instance in understanding laser optics. Professor Gieseker
proposes to apply the methods of algebraic geometry to find discretizations
of this type of equation so that the discretizations are integrable. This
means finding algorithms to solve these equations on the computer so that
the solutions computed on the computer have the same type of conserved
quantities as the original equations. Professor Gieseker will continue to
investigate his discretization of KdV, as well as develop new
discretizations of other infinite dimensional integrable systems.